Student Support for IEMDC 2013 Conference Participation. To be Held May 12-15,2013 in Chicago, IL.

Electric machines consume nearly 2/3 of global electrical energy, and produce nearly 100% of electricity. Innovations in this field have a fundamental impact on global economies and energy consumption, and are essential in the transition to sustainability. IEEE International Electric Machines and Drives Conference (IEMDC) is the leading conference in this field and will take place during May 12-15, 2013 at the Westin O'Hare (Rosemont) hotel in the Chicago area. Four IEEE Societies are co-sponsors of this conference: Power Electronics Society (PELS); Power and Energy Society (PES); Industry Application Society (IAS); Industrial Electronics Society (IES). Travel support for electrical engineering students, with first priority given to third year undergraduates is planned.